SBIR Phase I: Fluorescent Endoscopic Imaging of Ovarian Tumor Tissue

This Small Business Innovation Research (SBIR) Phase I develops methods that utilize an in vivo optical imaging system for tumor detection and localization during laparoscopic surgery of ovarian cancer patients to visualize tumors smaller than 1mm.

The broader impact of this application will be to provide a powerful and effective tool for monitoring patients with small volume ovarian cancer after they have completed their primary surgery and chemotherapy to quickly identify returning disease thereby improving survival rates by timely treatment.